U.S.-Netherlands Cooperation Workshop: Electronic Networks & Democratic Life, Piran, Slovenia

0123029
Harrison

This award supports travel of eleven US participants, including junior researchers, to a transatlantic workshop, "Electronic Networks and Democratic Life." The organizers are Teresa Harrison of Rensselaer Polytechnic Institute and Nicholas Jankowski of the University of Nijmegen, The Netherlands. The objective of the workshop is to articulate major research questions that will establish research priorities, generate collaborative projects, and lay the basis for comparative studies. Specifically, the workshop will address relationships between system characteristics and user behaviors, uses of new technologies for political and government action, and the nature and consequences of online civic discourse. The goal of the workshop is the development of an international research community participating in collaborative research projects on e-networks and democratic life.